Cutset Sampling and Processing

PROJECT ABSTRACT
Cutset Sampling and Processing
D.L. Neuhoff (P.I.)
This research project is focused on the development of efficient new methods for sampling and
processing multidimensional data such as images, video, or spatially distributed sensor data,
especially the first and last. Traditional methods of digital image processing rely on the taking
and processing of regularly spaced samples (pixels), typically at the sites of a lattice, for example
a square grid of points. In contrast, this project is investigating digital image processing
based on samples taken in a cutset, the simplest example of which is a square grid of lines that
spans the image. More generally a cutset is defined in terms of a set of neighborhood relations
among a discrete set of potential sample sites. Cutset sampling is expected to be especially
effective when the capturing of image edge information is important.
The principle motivations for cutset sampling derive from the facts that two-dimensional data
can often be well modeled by Markov random fields and that unsampled pixels of Markov
random fields can be efficiently estimated with belief propagation algorithms. This research
project is investigating different forms of cutset sampling, and it is developing reconstruction
algorithms tailored to cutset sampling, image compression methods based on cutsets, distributed
sensor network algorithms for scenarios in which sensors are deployed on cutsets, and analysis
techniques to determine the strengths and weakness of cutset sampling, and to enable comparisons
with conventional lattice-based sampling.